EPSCoR Graduate Fellowship Program (EGFP): Enhancing Ecological Resiliency in Ecology, Evolution, and Conservation Biology at the University of Nevada, Reno

The National Science Foundation (NSF), NSF EPSCoR Graduate Fellowship Program (EGFP) supports EGFP designated institutions/programs in EPSCoR jurisdictions by providing funding for graduate fellowships for eligible applicants. Institutions receive a total of three years of stipend and associated cost-of-education (COE) allowance for each NSF EPSCoR Graduate Fellow.

This award at the University of Nevada Reno (UNR) seeks to enhance research competitiveness and capability through an investment in talent development. Fellow research topics will align with goals and programs supported by the NSF Directorate for Biological Sciences (BIO). Funding will enhance the capacity and competitiveness of the Nevada EPSCoR jurisdiction by attracting students who will produce impactful research advances. The UNR Ecology, Evolution, Conservation Biology Graduate Program is a state-level leader in interdisciplinary graduate education and mentoring. The Program has a strong record of retaining and fostering the scientific and professional development of graduate students in the field of ecology, evolution, quantitative, and conservation biology. This experience will effectively train existing qualified EECB graduate students and strengthen the Program by recruiting talented fellows to build ecological knowledge, sustainability science, and species conservation in Nevada. The research and training students will participate in is aligned with the NSF priorities in Biotechnology, and AI.